Matrix Isolation Study of Reactive Intermediates Relevant to Thermal and Laser-Assisted Chemical Vapor Deposition

Prof. Ault is supported by a grant from the Experimental Physical Chemistry Program to isolate and characterize the important chemical intermediates which are produced during chemical vapor deposition processes by trapping them in an ultracold solid argon matrix and identifying their molecular structure using spectroscopy. These studies are important to the understanding of the mechanisms involved in chemical vapor deposition, one of the primary techniques used for growing thin films and coatings used in the semiconductor industry for the fabrication of microelectronic devices and in solar energy conversion applications. The unique capabilities of the matrix isolation technique will be exploited to isolate and characterize important chemical intermediates present during chemical vapor deposition (CVD) processes. These results will enhance our knowledge of the chemical structure and bonding of these important, unusual chemical intermediates and will lead to an increased understanding of the homogeneous gas phase processes which are part of the reaction steps involved in CVD. The reaction pathways and intermediates will be examined for thermal and laser-induced CVD in III-V and II-VI semiconductor systems and also amorphous silicon. Techniques auxiliary to matrix isolation will be employed as well, including cryogenic thin film formation, slow warmup spectroscopy, and gas phase infrared spectroscopy.